Analysis of Increased Shears and Overturning Moments in Structures by Ground Rocking During Loma Prieta, October 17,1989 Earthquake

This is a post Loma Prieta earthquake (Oct. 1989) investigation project in learning from this damaging event. The gist of this project is to study the effect of rocking motion of the earthquake to the structural response. The rocking component of ground motion is generally considered to be small in magnitude and therefore its effects are neglected. There are however certain situations where the combined conditions of structures, site location, and earthquake motions are such that the rocking component becomes important. In this project, the damage distribution will be studied to determine where the rocking motion contributed to the damages of the buildings which were not designed to account for these additional effects. Geology and soil data of the entire bay area will be used to estimate the rocking motion contributions at various sites based on the recorded translation motions. The generated data will then be used to analyze different structures for rocking response. This study will enable engineers to determine rationally the importance of rocking motion in the seismic safety of structures designed with or without consideration of such additional earthquake forces.